Theoretical Studies of Kinetics, Dynamics and Mechanisms of Polyatomic Bimolecular Gas Phase Chemical Reactions

The Theoretical and Computational Chemistry program is supporting professor Truong at the University of Utah. The research to be conducted over the next three years involves the development and applications of new direct ab-initio dynamics methods for investigating potential energy surfaces, kinetics, and dynamics of gas-phase bimolecular reactions. The dynamical method is based on Variational Transition State Theory augmented with several multidimensional semiclassical tunneling corrections. Reaction path information will be evaluated directly from a sufficiently accurate ab-initio or non-local density functional method, thus obviating the need for the construction of analytical potential functions which currently do not exist for most of the reactions under consideration. A methodology for calculating vibrational-state selected rates will also be developed. These new methods will be used to study the detailed dynamics of a number of radical reactions. Most of the reactions under consideration involve hydrogen abstraction by species such as hydroxyl radical reacting with H2, or methane. Particular attention will be devoted in these investigations to the effect of reagent vibrational energy on the computed bimolecular reaction rates. These investigations will also attempt to correlate the topology of the potential An understanding of the dynamics and mechanisms of these reactions has implications at both the fundamental as well as technological levels. In terms of technology, these hydrogen abstraction reactions are of significance in combustion, environmental and atmospheric chemistry. In terms of a fundamental chemical understanding, these reactions contain similar reaction kinematics with simple light-light-heavy (L-L-H) and heavy-light-heavy (H-L-H) atom-diatom reactions whose dynamics have been well studied. Experiments on these reactions are underway in different laboratories. Hence, potential energy surface information resulting from this work will be valuable in aiding the interpretations of new experimental observations.